Undergraduate Physics Research

This action is for the continuation of a successful program that involves undergraduate students in the research activities of an internationally-famous research institute.